III: Small: Women in Bioinformatics Initiative at ACM BCB 2011

The Association for Computer Machinery (ACM) International Conference on Bioinformatics and Computational Biology (ACM-BCB) is aimed at providing a common environment to bridge important interdisciplinary research areas in computer science, mathematics, statistics, biology, bioinformatics, and biomedicine and an interactive forum which brings together superb researchers, practitioners, and students from around the world to promote scientific understanding and findings in computational bioscience. The meeting provides an opportunity for researchers from very different disciplines to form new collaborations and research programs. The proposed “Women in Bioinformatics” initiative at ACM-BCB 2011 promotes broad participation from underrepresented groups in this important event and help develop the 21st century workforce in the computer science, biological science, biomedical science and other interdisciplinary areas.